Conference: East Coast Computer Algebra Day

The 2010 East Coast Computer Algebra Day (ECCAD), will be held at Emory University, Atlanta, Georgia, on May 15, 2010. The purpose of this meeting is to stimulate interest in and enhance understanding of the technical aspects of computer algebra, by providing a meeting for those in the region who are active or interested in any aspect of computer algebra, including theory, software, and applications. The one day format allows researchers from the community and those interested in learning more about computer algebra to meet with each other in an inexpensive and easily accessible way. This meeting will be more informal than a traditional conference, with ample time for unstructured interaction. Participation by graduate students from the region will be particularly encouraged through special invitation to contribute to the poster sessions, and through travel support.

The meeting will include presentations by three speakers who are researchers in computer algebra or who make signicant use of computer algebra in applications. In addition, there will be contributed poster and software demo sessions, and a panel discussion on trends, open issues and future directions of computer algebra.